NeTS: Small: BugWatch: Towards Detecting and Reacting to Network-Data-Plane-Disrupting Bugs

Network-data-plane-disrupting bugs can cause the disruption of
critical network applications. Unfortunately, today, there exists no
comprehensive solution for detecting data-plane-disrupting
bugs. Consequently, the network operator has few useful leads for
investigating bug-triggered problems. To bridge this gap, this project
develops novel measurement-based solutions for automatic bug detection
that are accurate and scalable. The results from this project will
significantly improve the reliability of current and future generation
networks. The expected results include network measurement techniques,
data analysis methods, network-wide monitoring strategies, data
structures and algorithms for high performance bug detection, and bug
localization techniques. These solutions will (1) save IT personnel
resources because network operators no longer need to troubleshoot an
entire complex network but instead can focus on finding the best
solution for a detected bug; (2) reduce negative impact of bugs
because the operator can immediately take proper defensive actions;
(3) improve assurance after software or hardware updates since
incorrect data plane behaviors resulting from updates could be
automatically caught; (4) improve feedback to vendors since vendors
can receive valuable information correlating detected bugs to
configurations, updates, configuration changes, etc., which helps
vendors diagnose the problem's root cause and develop solutions. The
results from this project will be broadly disseminated through
scientific workshops, conferences and journals, as well as through a
project web site hosted at Rice University. Software and tools that
are produced by this project will be released to the public under open
source licenses.